Improvement of the Natural Sciences Curriculum Through Use of Multinuclear NMR Spectroscopy

Interdisciplinary (99)
This project adapts materials developed at American University and Centre College to enhance science education at one university. It includes the introduction and use of a high-field NMR spectrophotometer into the chemistry curriculum as well as within the biology and physics curriculum. The topic of NMR has found such widespread application that many colleges and universities have been introducing the principles of NMR experimentation earlier and earlier in undergraduate education. Thus this project enriches the experience of many science students and impacts science education quite broadly. The introduction of this instrument into the undergraduate program helps achieve the university's goal of integrating scientific disciplines to prepare students for teaching and research opportunities in the twenty-first century.